Support for the Third International Colloquium on Bluff Body Aerodynamics and Applications (BBAAIII); Blacksburg, VA; July 28-August 1, 1996

9521949 Tieleman This award is to support the Third International Colloquium on Bluff Body Aerodynamics and Applications (BBAA III) to be held on July 28 - August 1st., 1996 at Virginia Tech University. The purpose of the colloquium is to broaden the interaction of engineers and scientists, researchers and practitioners in the fundamental aspects of bluff body aerodynamics and related fields. These exchanges of information and knowledge will strongly benefit the wind engineering community since the understanding of the behavior of air flows around structures is fundamental for estimating their response to particular wind loads and for developing mitigation strategies. ***